Presidential Young Investigator Award: Nonlinear Effect in Rotor Systems

This project addresses two important topics in the Dynamic Systems and Control Program. The first research activity is in nonlinear dynamic systems and includes studies of chaotic systems and nonlinear system identification. The second research activity continues work on nonlinear effects in rotor systems. This project activity also includes establishing a dynamic analysis laboratory to complement the analytical research in nonlinear dynamics.